MGR Honorable Mention: Roy Garcia

This special award will give Ph.D. student Roy Garcia additional flexibility in pursuing his graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.